Conference: Organization of the 1992 Integrated Photonics Research Topical Meeting held in New Orleans, Louisiana on April 13-15, 1992.

The Integrated Photonics Research Topical Meeting will be held April 13-15, 1992, New Orleans, Louisiana. The Integrated Photonics Research meeting, held for the first time in March 1990, is an annual topical meeting covering the subject areas of the previous topical meetings on Integrated and Guided-Wave Optics, Nonlinear Guided-Wave Phenomena: Physics and Applications, and Numerical Simulation and Analysis in Guided-Wave Optics and Optoelectronics. The Integrated Photonics Research meeting will cover all aspects of research in integrated and/or guided- wave photonics. Topic areas include: Photonics Devices and Circuits; Nonlinear Guided-Wave Phenomena Modeling, Numerical Simulation, and Theory; and Physics, Materials, Technology, and Characterization. Each of these areas will be represented by a subcommittee of the program committee.